Mathematical Sciences: Nonlinear Integrodifferential Equations in Viscoelasticity

This research program is concerned with intergro- differential equations associated with the mechanics of viscoelastic materials. Unlike previous effort in this area, the focus will be on weak solutions: their existence, numerical algorithms, decay rates, etc. Research results will contribute to the advances of material science, particularly rheology, and structural system designs. Information on the formation of shocks and their propagation will be useful for our understanding of cracks in viscoelastic structures.